CISE Research Instrumentation: Research in Computational Multimedia

EIA-9986057
Kenneth Rose
Univ. of California-SB

CISE Research Instrumentation: Research in Computational Multimedia

The departments of Computer Science and Electrical Engineering at the University of California, Santa Barbara will purchase the following infrastructure equipment: an SGI 2100 multimedia server with three client SFI 02 workstations to manage, process and stream multimedia data onto a wireless local area network with several PC's on the backbone Ethernet and mobile computers (laptop computers and handheld devices); an MPEG-2 encoder from Optivision, still and video cameras as input devices, and high resolution monitors and a color laser printer for display and presentation. This equipment will be dedicated to support research in computer and information science and engineering with the main focus on computational multimedia research related to multimedia signal processing, databases, networking and communications. The equipment will be used by several interrelated research projects. These projects include: clustering, indexing, and data mining in high dimensional feature spaces; scalable audio and video over IP and wireless networks; data warehousing in mobile environments; and shared multimedia objects in mobile environments.